Mathematical Sciences: Symmetry Groups in Dynamics and Topology

This project concerns the symmetry groups of shift dynamical systems and smooth manifolds. Ideas from algebraic K-theory are applicable to each area and form a common theme between them. The investigator will continue to study the algebraic and homological properties of symmetries of one-dimensional sub- shifts of finite type (SFT's), sofic, and other shift dynamical systems. These systems arise in a number of contexts, including dynamics, information theory, and statistical mechanics. Their symmetries are often called invertible or reversible cellular automata. He will also study similar questions for higher dimensional Markov shifts and their symmetries. The classic Alexander polynomial of a knot in three- dimensional space is closely linked to the algebraic K-theory group K1. Recently, other polynomial invariants have been found for these knots, starting with the work of Vaughan Jones. Pseudo-isotopies and diffeomorphisms of manifolds in a wide range of cases (including knot complements) have invariants involving the algebraic K-theory group K2. The investigator will examine whether it is possible to define new invariants of diffeomorphisms of knot complements and other 3-manifolds in analogy with the new knot polynomials. The commonality of method here is surprising. A deep and highly evolved algebraic theory, K-theory, is to be brought to bear upon symmetry questions which are very far apart in appearance. On the one hand are subtle topological questions about knots. On the other hand are subtle combinatorial and statistical questions about infinite strings of symbols. The latter application has already borne substantial fruit.